Equipment Proposal for a Distributed Systems Laboratory

A Distributed Systems Laserwriter will be provided for researchers at the University of Maryland for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of protocol development and evaluation, real-time operating systems, and unified time-critical distributed systems.